High Speed Imaging for Research in Two-Phase Combustion and Combustion Control Applications

Abstract
CTS-0111283
D. Dunn-Rankin, U of Cal Irvine

A 10-kHz diode laser illuminator, a high-speed digital camera, and associated optics and control software are acquired for use in visualization in a variety of combustion studies. Among these are studies of droplet streams and droplet stream flames, interacting droplet combustion, flame control, and electrospray flames.